Empirical Tests of Neo-Classical Trade Theory Using a Natural Experiment: The Case of Japan

Intellectual inquiry in the field of international trade is firmly rooted in an
analytical paradigm: the comparison of an economy in a state of autarky relative to a state
of open international trade. In the context of the Arrow-Debreu model of general
equilibrium, this methodology has facilitated the formulation of some of the most
fundamental theorems in neoclassical economics: the law of comparative advantage, the
Heckscher-Ohlin theorem and the Stolper Samuelson theorem. Since the price is the final
primitive concept in the Arrow-Debreu model, these theoretical theorems are usually
formulated using goods and factor prices under autarky and free international trade. The
alleged impossibility of employing goods and factor price data in autarky and free trade
under the ceteris paribus assumption has been a major difficulty to empirically test these
theorems.
In the current research project, the PIs plan to continue their empirical analysis of
the most dramatic trade liberalization in recorded economic history: Japan.s reopening to
the world economy in 1859 after 200 years of self-imposed isolation. In their previous
research (Bernhofen and Brown, 2004, 2005a), the investigators establish the case of
Japan as a natural historical experiment compatible with the neoclassical trade model and
investigate the pattern and gains from trade related to the law of comparative advantage.
In the proposed project the PIs, together with a Japanese collaborator, plan to engage in a
substantial data creation effort which will entail the collection of goods prices, factor
prices and factor input coefficients of tradable commodities before and after Japan.s
opening up to international trade. This will enable the PIs to provide new and unique tests
of the Stolper-Samuelson and the Heckscher-Ohlin theorem, which are expected to make
substantial contributions to the empirical international economics literature.
The proposed project consists of three parts. The first part will provide the first
direct test of a general version of the Stolper-Samuelson theorem. It will investigate
whether factor intensity weighted changes in goods prices predict the observed pattern of
changes in the prices of the corresponding factors after Japan.s opening up. The second
part will provide the first direct test of the Heckscher-Ohlin theorem in its autarky price
formulation. A key advantage of using autarky factor prices as a measure of relative
factor abundance for a test of the Heckscher-Ohlin theorem is that it allows for unequal
factor prices and technologies between Japan and its trading partners.
The third part of the project will use the results from the first two parts of this
project and Bernhofen and Brown (2004, 2005a,2005b) to create an account of the natural
experiment of Japan that is accessible to a wide range of audiences. The PIs expect this
part of the project to have a broad impact on teachers, undergraduate students and
graduate students with an interest in international economic issues. This theory-guided
comprehensive case study will include components designed to meet the pedagogic goals
appropriate to a range of student audiences from the introductory to the Ph.D. level. The
PIs will make this case study publicly available on their website. The website has the potential
to engage student audiences from around the globe.